High Bandwidth Connection To Florida Research and Education Network

This award is made under the high performance connections portion of ANIR's "Connections to the Internet" announcement, NSF 98-102 (replaces NSF 96-64). It provides for partial support for a DS3 connection to the very high performance Backbone Network Service (vBNS) for University of South Florida for two years. Meritorious research applications that link geographically separated campuses include Graduate and Undergraduate Laboratories and the Distance Learning Program. Other applications that represent a broad range of major research interests utilizing high speed connectivity include Ocean Modeling, Digital Libraries Project, Digital Medical Imaging and Marine Science Remote Sensing Facility's Measurement and Distributed Visualization.